Installation, integration and testing of a precision heading and vertical reference and real-time navigation capability for the USCG Icebreaker Healy's Science Data System

This project is to install a high quality heading, attitude and positioning system on the Healy, namely the POS/MV-320 manufactured by Applanix (now part of Trimble). The system will be integrated into the vessels existing data systems while preserving flexibility to allow the system to support future data systems, implement interfaces and add a real-time data display system for monitoring and controlling the attitude and heading system.

The intention is to be able to do the installation at the end of the maintenance period in late spring, prior to sea trials for the '04. The POS/MV and navigation system will be evaluated during the post maintenance sea-trials and on the transit prior to the funded science cruises.